An Evaluation Framework for Data Driven Instructional Decision Making

The PI proposes a three -year project for the examination of technology-based, data driven instructional decision-making tools, their implementation, their effectiveness and impact on different levels of school systems (i.e., administrators and teachers). Research questions include can tools facilitate decision-making and how to use such tools and data to enhance instruction. The Investigators will leverage work from three current projects, each focused on the development/implementation of a different tool available for teachers to assess student progress. They are:
o Grow Network - a web-based test reporting system, which disaggregates state test data
o IBM Reinvention Education Warehousing project - offers educators, etc. access to a broad range of data from attendance to test scores and grades.
o Wireless Generation - handheld technology for teachers for on-going diagnostic assessment of student math learning at grades 3-4-4

The plan is to develop and validate an evaluation framework, which will be developed within the context of a systems perspective, using multiple methodologies (formative and summative) at multiple levels, including systems analysis.